Theoretical Nuclear Physics

There are three research topics in the award. First is to continue the study of quarks in nuclei. Second to look for explanations of the anomalous electron positron pair peaks seen in heavy ion collisions in terms of binding of electrons in a stressed state of the QED vacuum; and third to investigate, with Ms. Hu, muon catalyzed fusion.